A Symposium Series on Heuristic Search and Its Applications

The project kick-starts an international symposium series on the topic of heuristic search. Currently, work in this area appears scattered across many conferences in several fields. The intellectual merit of this project stems from the sharing of new results, ideas, and problems across the many areas in AI and robotics where heuristic search is used. Broad impact comes not only from this intermixing but from having a single locus of activity for efforts in heuristic search, one that we expect to become known in the wider community as the place to look when one wants a snapshot of the latest developments in the area. The first symposium will be held as a AAAI workshop in 2008. NSF funding supports student participation and invited speakers, and there is the expectation that the symposium series will be self-sustaining by 2010.